Geometry and Physics EMSW21-RTG

Abstract

Award: DMS-0636646
Principal Investigator: Ezra Getzler, Boris Tsygan, Eric Zaslow

Modern mathematical physics increasingly draws its techniques
from a broad array of mathematical disciplines. Differential
geometry plays a vital role in the study of quantum field theory
through index theory, microlocal analysis, and mirror
symmetry. Homotopy theory has become an essential tool in the
study of geometry and physics, through the tools of A-infinity
categories and derived categories. Representation theory and
number theory have been developing links with conformal field
theory through analogies between the Langlands program and the
geometric Langlands program. Northwestern University is fortunate
to have on its faculty world leaders in each of these directions
of research. It is the ambition of this group to attain national
leadership in training students and postdoctoral researchers in
these fields.

The physical world writes its laws in the language of
mathematics, and progress in physics is intimately connected to
progress in the development of mathematical methods and
theories. In contemporary mathematical physics, geometry, in many
different forms, and representation theory (the study of
symmetry) play a central role. The mathematical physics group at
Northwestern is particularly well-placed to attain its goal of
increasing the number of US citizens who pursue careers in
mathematical physics: the university attracts a particularly
strong group of undergraduates (through its renowned Integrated
Science Program, for example); the graduate program has become
more selective; and the mathematics department has developed a
postdoctoral program, which has been consistently successful at
attracting women and has consistently placed postdocs in
successful academic positions.